RUI: NMR Studies of Cyanobacterial Nitrogen Metabolism

Cyanobacteria that are not di-nitrogen "fixing" will be studied in terms of the dynamics of nitrogen metabolism as related to the unique nitrogen storage polymer, cyanophycin, during normal growth conditions as well as in conditions where nitrogen limitation or repletion exist. NMR spectroscopy using N-15 and P-31 will be a principal analytical tool to study N metabolism in vivo and to monitor the metabolic state of cells during shifts from one environmental state to another. The studies are expected to lead to a better understanding of gene regulation in this group of environmentally significant procaryotes particularly in terms of the interactions of metabolic controls and environmental conditions.//